Model-Based Design of Optimal Nonlinear Filters for Binary Images

All translation-invariant binary image filters possess morphological representations. Hence, finding an optimal filter involves finding the structuring elements that yield a filter having minimum error - in our case, mean-absolute error (MAE). This observation leads to automated design procedures for restoration and enhancement filters when treating both the observed (corrupted) and ideal images as random set processes. A key design aspect is postulation of image models for the ideal and observed processes. This research concerns filter robustness relative to modeling assumptions: to what degree is filter performance degraded relative to deviations from the design assumptions? Our approach is to assume parameterized ideal and observed image processes and to consider the effects of applying an optimal filter for a given parameter vector to images corresponding to different parameter vectors. The design of enhancement algorithms is an integral part of the manufacture of electronic office equipment. This time-consuming (up to a year), and performance is limited by the ability of a human being to consider only a relatively small number of possible algorithms. Recently, enhancement algorithms have been automatically designed by higher-level algorithms that use statistics in conjunction with mathematical models of images and imaging systems, thereby significantly cutting design time while at the same time producing better enhancement. The present research investigates design from various image models. It also addresses the "robustness" question: since a designed enhancement algorithm is based on modeling assumptions, practical application requires that we have a reasonable idea of how it will perform on image data that differs to varying degrees from the data on which it has been designed.